Update of Data on Scientists and Engineers in Selected Industrialized Countries

This project will assist NSF in compiling, standardizing and analyzing updated data on the stock and employment of scientists and engineers in the industrialized countries of France, the United Kingdom, West Germany, and Japan. Foreign census and labor force data will be used to provide estimates of scientists and engineers wherever possible by detailed fields and selected characteristics such as sex, age, educational qualifications and branch of economy and industry. The National Science Foundation has primary responsibility within the Government for collecting and providing statistics and analysis of information on scientific and technical personnel resources. NSF has established a data base of such information for four large industrialized countries--Japan, West Germany, France, and the United Kingdom (agreement number SRS-8813944) and has started efforts to collect such data for selected additional countries of Italy, Canada, Sweden, Taiwan and South Korea (agreement number SRS 8907725). This project will make use of new data which is expected to become available during the next year to increase the data base and further enhance the analysis of trends. This type of information is sought by decisionmakers in the pubic and private sectors and is needed for Congres- sionally mandated reports such as Science and Engineering Indicators as well as the increasingly important report International Science and Technology Data Update.